Maintaining U.S. Leadership in Engineering and Science

This project provides for international technology assessments and related planning workshop support. WTEC and its predecessors have conducted over 60 such technology assessments since 1989. The objectives include seeking technologies to transfer to the U.S., evaluating the position of U.S. science and technology with respect to leading competitors, and seeking opportunities for international cooperation in research.

The project provides for four or more additional international studies and reporting of the results, plus one or more workshops in area related to international technology assessments.

Results will be disseminated at workshops including copies of visual aids distributed in hardcopy and posted on the Web, final reports from each study tour of academic quality in hardcopy, CD, and Web media, plus at least one synthesis report on cross-cutting findings. A blog on international S&T policy will be published to report progress.